Evaluation of New Low-Noise Infrared Detectors for Wavefront Sensor Applications

ABSTRACT

This study will provide timely evaluation of a new family of imaging devices for near-infrared wavelengths developed by the Rockwell International Science Center. Some early tests show that the new detectors are capable of high-speed read out and very low noise (about 1 electron). It is expected that as these devices mature that they will be ideal for astronomical adaptive optics (AO) applications involving wavefront sensors and tip/tilt sensors where high frame rates and low noise are required simultaneously.

Evaluation of the devices will be done at the UCLA Infrared Imaging Detector Lab. As newer devices become available with multiple outputs (up to 32), the electronics data acquisition system will be upgraded to operate at higher speeds.